Simulation and Computational Modeling in Science and Engineering

9322255 Sipcic This Research Experiences for Undergraduates project will focus on Simulation and Computational Modeling in Science and Engineering. This research centers on the cutting-edge problems that challenge engineers and scientists that typically cannot be solved by other methods. The Boston University Department of Aerospace and Mechanical Engineering features active research groups in Acoustic and Wave Propagation; Nonlinear Dynamics Chaos and Turbulence; Control and Robotics; Fluid Dynamics and Transport Phenomena; and Engineered Materials. These research groups are supported by state-of-the-art computational facilities. ***